ERI: Effects of anisotropy induced by subsurface depositional geometry on undrained shear response of fluvial deposits

This Engineering Research Initiation (ERI) award supports research to better understand how the geometry of soil layers (e.g., inclined vs. horizontal) affects the strength of riverine soils. Rivers and other water bodies naturally deposit sediment in layers, which are often inclined. However, currently, the impact of these inclined layers on soil behavior under various types of loading (including potentially disastrous ones such as earthquakes) has not been studied or understood. Thus, this award supports fundamental research to close this gap by assessing the effect of deposition angle on soil’s shear strength. The outcomes will help improve predictions of ground failure and support the design of safer critical infrastructure, aligning with a recommendation from the National Academies of Sciences, Engineering, and Medicine to apply geological principles to improve engineering practice. Beyond scientific contributions, the project supports workforce development. It helps address a national shortage of civil engineers by training undergraduate students in geotechnical engineering and introducing local high school students to civil engineering careers through a summer outreach program, thereby building a skilled workforce prepared to address future infrastructure and natural hazard challenges.

The overarching research question is: "How does fabric induced by subsurface depositional geometry (i.e., the inclination angle of layered soil deposits) influence the undrained shear response of cohesionless soils?" This research question is addressed by first characterizing the initial soil and loading conditions relevant to inclined-layered fluvial deposits (e.g., fines content, relative density, loading direction) and then by systematically varying the angle of inclination to isolate its effect on shear strength. A novel specimen preparation apparatus and method will be used to create inclined-layered soil specimens across the observed range of natural dip angles (5°–25°), enabling controlled reconstitution of depositional fabric not achievable through conventional methods. Undrained direct simple shear testing will be used to characterize the shear response as a function of inclination angle, loading direction, initial static stress state. This work has the potential to establish a new framework for evaluating the strength of naturally layered soil deposits and to advance fundamental knowledge by improving our understanding of how geologic factors influence soil shear strength. Furthermore, it will also improve the accuracy of ground-failure predictions and support a more resilient design of civil infrastructure in fluvial deposits and other environments that host inclined sedimentary features.